RUI: A Method for Uncoupling and Solving the Equations of Motion of Vibrating Linear Discrete Systems

The second order differential equations of motion governing the vibrations of a linear, viscously damped, discrete system are generally mutually coupled. The damping is said to be classical if and only if the equations of motion can be uncoupled by an undamped modal expansion. This proposal examines the problem, for the case when the viscous damping is nonclassical, of how best to uncouple and solve the governing equations of motion by approximation, with a real-valued coordinate transformation. It is proposed that the matrix equation of motion, with its mass matrix transformed to a unit matrix, be transformed by an orthogonal coordinate transformation to a new generalized coordinate system in which the bound on the norm of the error introduced in the response by discarding all the coupling terms is a minimum. A trial evaluation of this method is computationally effective for solving certain types of nonclassically damped systems. The proposal describes the general approach and delineates the research plans for a comprehensive study of the proposed method. The proposed method has application to large, multi-degree-of-freedom vibration problems in aerospace, civil and mechanical engineering.*** //